Synthesis and Processing of Electroactive Polymers in Nanostructured Energy Devices

PI: Lau, Kenneth K.S.
Institutions: Drexel University
Proposal Number: 1264487
Title: Synthesis and Processing of Electroactive Polymers in Nanostructured Energy Devices

Energy storage is a key component in the energy conservation equation, especially when considering
sustainable energies like solar and wind, which are more variable and intermittent in nature depending on
the time of day, season of the year, and geographical location. Similarly, the ability to store energy and
use it when demanded will provide a more seamless operation of electric vehicles whether during
acceleration/deceleration or in cruise mode. Among different energy storage technologies, supercapacitors
or electrochemical capacitors are emerging as an attractive option for delivering much higher power (rate
of energy transfer) than alternative options like the lithium ion battery.

Intellectual Merit

Supercapacitors that store charge through electrochemical double layers possess higher power density but
lack sufficient energy density. By incorporating electroactive polymers, which undergo relatively fast
redox reactions, further pseudocapacitance can be added to enhance energy density. However, as the
supercapacitor electrodes are typically highly porous nanostructures, there remains significant synthesis
and processing challenges in adding the electroactive polymers onto the surfaces of pores inside these
nanostructures without sacrificing surface area or pore access. The PI plans an oxidative
chemical vapor deposition (oCVD) approach that will address many of the challenges by enabling the
conformal, uniform growth of thin films of electroactive polymers inside porous nanostructured materials.
The central hypothesis is that the liquid-free, vapor-to-solid polymerization reactions will lead to surface
confined polymer growth and ultrathin films that do not significantly alter the underlying pore structure
while adding appreciable pseudocapacitance. This work will involve (1) synthesis of
electroactive polymer thin films in porous nanostructures, (2) understanding the effect of processing on
polymer structure and properties, and (3) assembly and electrochemical analysis of pseudocapacitors that
make use of oCVD to incorporate the electroactive polymers.

Broader Impact

This work is expected to deliver enhanced supercapacitors with significantly
higher specific capacitance, energy density, power density and cycle stability, making them viable for use
in electric and hybrid vehicles as well as in the development of greener energy systems that include solar
cells and fuel cells. Fundamentally, the work is expected to provide an effective synthesis and
processing methodology for conformally coating porous nanostructures that will have broader utility in
other nanoscale devices, including electronics, sensors, solar cells, fuel cells, transistors and organic light-emitting diodes (OLEDs). Integrated with the research is an education program, which aims to train graduate and undergraduate
students as well as to engage high school students in polymers for energy. Minority and underrepresented
students will be actively recruited to participate in the project. In addition, outreach will be
made to schools in Philadelphia and inner city Camden, NJ to promote STEM involvement and learning
early on.